San Diego Symposium on Asymptotics and Applied Analysis to be held January 10-14, 2000 in San Diego, California

Re: DMS-9818531
Title: San Diego Symposium on Asymptotics and Applied Analysis.

T. M. Dunster and D. A. Lutz are the organizers of the "San Diego Symposium
on Asymptotics and Applied Analysis" from January 10 - 14, 2000 at San
Diego State University, California. The proposed conference will have
talks falling under the following three categories in asymptotics and
applied analysis: difference equations, ordinary differential equations,
and functions defined by integrals. The first of these would emphasize
asymptotic methods involving special functions. Included in the second and
third categories would be new results related to exponentially-improved
asymptotics and hyperasymptotics, summation of divergent solutions,
connection problems, error analysis, and applications to special functions.
The following eleven leading experts in the above fields have indicated a
willingness to participate as principal speakers in the proposed symposium:
F. W. J. Olver (Maryland), R. Askey (Wisconsin), W. Balser (Ulm, Germany),
C. Bender (St. Louis), M. Berry (Bristol, UK), B. Braaksma (Netherlands),
P. Pham (Nice, France), R. Schaefke (Strasbourg, France), Y. Sibuya
(Minneapolis), N. Temme (Netherlands), and R. Wong (Hong Kong).
Post-doctoral and graduate students, and especially those from
under-represented groups in mathematics, are strongly encouraged to attend.

The broad area of this conference is asymptotics of special functions.
Asymptotics is defined to mean, for example, the approximation of a given
function in terms of a function whose properties are better understood, or
which can be more readily computed. Special functions are solutions of
certain equations which appear in many areas of physics, engineering and
mathematics. This is a very classical branch of mathematics that has
already contributed much to our understanding of the physical world.
However, during the past decade there have been a series of new and
exciting ideas leading to significant improvements in the accuracy of
asymptotic methods, with the main contributors coming from the US, Europe,
and the Fareast. But since 1989 (Winnipeg, Canada) and there have been no
major conferences in North America on the theme of this symposium, even
though there have been many conferences on similar themes in Europe and
Asia. This symposium will bring experts and younger researchers together
to disseminate these new ideas to a wider audience and lay the groundwork
for future studies and collaboration, new applications, and insight into
more complex problems to be yet solved.